Mathematical Sciences: Isoperimetric Inequalities and LowerBounds for Stochastic Processes

Professor Talagrand's research will be in three main areas. He will study lower bounds for Bernoulli processes with a view to proving a conjecture involving a norm incorporating the geometry of two Banach spaces. He will continue his research in isoperimetric inequalities. He will study the notion of type and cotype in Banach spaces. This research is at the interface of two fields: probability theory and the geometry of infinite dimensional spaces (Banach spaces). Probabilistic ideas are useful in understanding Banach spaces and conversely the quest to understand these spaces leads to new and interesting questions in pure probability.